Collaborative Research: Science of Search: Data Search, Analytics, and Architectures Center (DSAAC)

A planning meeting will be held to determine the organization and viability of forming a new multi-university Industry / University Cooperative Research Center (I/UCRC) for Data Search, Analytics, and Architectures, with Indiana University as the lead research site and the Florida International University as a research site. The Center will focus on an area of technical and economic importance. It will study the representation, management, storage and analyses of large multi-modal data. Managing large complex data sets and analyzing them is problem common to many industries. The proposed center should benefit significantly from the resources available at the two institutions including unique and extensive facilities funded by NSF on Emerging Techniques for Advanced Information Processing at Florida International University.